International Research Fellow Awards: Effects of Microstructure on Mechanical and Transport Processes in Soils

9802887 Muhunthan The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twentyfour months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve month postdoctoral research visit by Dr. Balasingam Muhunthan of Washington State University to work with Dr. Malcolm Bolton at Cambridge University on the effects of microstructure on mechanical and transport processes in soils. Funding for this award comes from the Hazard Reduction Program in the Division of Engineering. This collaboration will develop a new framework to enable the characterization of nonlinear and unstable materials behavior from the approach of micro-mechanics. Dr. Bolton has made significant contributions in constitutive modeling of soils and centrifuge testing for geotechnical applications. He is director of the Cambridge Geotechnical Centrifuge Center. ***